Studies in Parallel Algorithm Design and Computational Geometry

Professor Kosaraju will examine algorithm design issues in the areas of parallel computation and computational geometry. Specific problems include: (1) the parallelization of tree-structured computations and dynamic programming constructs, (2) the parallel implementation of data structure constructs, (3) an investigation of mesh architecture with a primary focus on developing methods for translating PRAM algorithms to meshes, (4) a study of information flow in trees of processors to explore their pipelining capabilities, (5) an investigation of a systematic formulation for handling finite precision computational geometry, and (6) the development of algorithms for coordinated motion of robot arms.